CRII: SHF: Automatic Extraction of Error-Handling Specifications in Systems Software

Software error handling is the process of detecting and responding to
the occurrence of errors during the execution of a program. Ideally,
whenever a runtime error occurs, software systems should respond
according to the programmer’s intent. Unfortunately, that is often not
the case. Error-handling code is difficult to write, and tends to be
poorly understood, poorly documented, and poorly tested.
Unsurprisingly, error-handling code is often buggy. Bugs in software
error handlers are some of the most pervasive, dangerous, and
difficult to detect bugs. Incorrect error-handling is particularly
alarming in systems software (e.g., the operating system) because user
applications depend on the reliability of systems software. This
research aims to gather a better understanding of error handling in
systems software through automatic inference of error-handling
specifications.

Error-handling specifications describe how the system detects and
recovers from errors. This research applies static program analysis
techniques to automatically infer error-handling specifications in
systems software. This task is particularly challenging because
systems software implements numerous failure policies, and
error-handling code is often diffused through the system. Furthermore,
the analysis of such large code bases often faces scalability
problems. Understanding existing error-handling strategies is the
first step to ensure systems software is reliable. This understanding
also has the potential to lead to the development of new
error-handling mechanisms, and new programming language support for
error handling. Both of these could have a significant impact on
software reliability beyond systems software.